San Diego Supercomputer Center Summer Institute 1988

This proposal proposes to conduct a two-week Supercomputer Summer Institute in August 1988. Attending would be 30 young researchers from across the U.S., including five researchers from SDSC industrial research partners. Review of applications will be made by the SDSC Allocation Panel, a panel of computational scientists which normally reviews applications for supercomputer resources at the SDSC. Lectures and working sessions will give the students a strong grounding in the practical techniques of supercomputer usage and expose them to the wide range of research activities using supercomputing. Each student will have a Macintosh workstation fo use during the Institute, as well as access to more advanced graphics workstations from a variety of vendors, such as the Sun, Apollo and Iris. The SDSC has conducted similar successful institutes in 1986 and 1987. Negotiations have reduced the budget from the $60,909 originally proposed while retaining the proposal's quality. An award to the San Diego Supercomputer Center for a 1988 Summer Institute is recommended in the amount of $50,000.